Charge, Relative Humidity and Altitude Effects on the Evolution of Precipitation

The objective of this research is an experimental investigation of the coalescence of raindrops with respect to drop size, ambient pressure temperature and relativity, and droplet charge. These measurements will be obtained in the laboratory where the latter variables will be controlled. The results should contribute to the physics of natural precipitation, particularly clouds not containing ice.